RUI: Interface States in Polycrstalline Zinc Oxide

Interface states at grain boundaries in wide band gap materials such as zinc oxide are being studied by means of deep level transient spectroscopy and a new transient photocapacitance technique being developed as part of the project. The goals are to identify the origins of deep states greater than 1eV below the conduction band, and to uncover the physical origins of emission of trapped carriers from the deep levels.